GOALI: Probabilistic Geomechanical Analysis in the Exploitation of Unconventional Resources

The Nation faces simultaneous challenges from increasing demand for energy coupled with depletion of conventional oil and gas resources. It is expected that the advanced research described in this proposal will lead to sustainable, safer, environmentally clean and more efficient unconventional oil resource recovery techniques. These attributes will be critical to the economy, environment, and security of the United States in the 21st century.

This research proposal brings together random field theory and finite element methods, also known as the Random Finite Element Method RFEM, which will be developed and applied to the unique geotechnical conditions encountered in the unconventional oil resource recovery industry. The industrial partners at Shell have developed advanced deterministic modeling technologies for exploration and production of unconventional oil resources such as heavy oils and oil shale. This proposal enables Shell to work with academic collaborators at the Colorado School of Mines to include advanced probabilistic based numerical simulation methods into their modeling capabilities. In addition, the practical applications and data made available by the industrial partners will greatly enhance the usefulness of software developed predominantly in an academic environment.

This collaborative project will improve industry-university research linkage in the design and implementation of unconventional oil resource recovery techniques. The aim is to set a high industry standard for unconventional oil resources extraction which will undoubtedly be under close public scrutiny due to the important environmental implications. It is also anticipated that this research will lead to an understanding and recognition of the importance of risk and reliability methodologies among the public, including engineers of the industrial partner.

Developments made in this research will also lead to improved understanding and implementation of risk and reliability methodologies into more routine geotechnical design.